CEDAR: Measurement of Atmospheric Composition

This research involves studies of atmospheric composition by measuring twilight airglow emissions. By measuring the decay in selected atmospheric emission rates as the solar depression angle increases, the temperature and product of density and integrated solar flux can be determined. The use of two look directions aids in the separation of the density integrated solar flux product. Two narrow band tilting filter photometers are deployed to obtain the data. The objectives of the research are to quantify the variations in temperature and density, relate these changes to solar EUV flux, discover how variations due to dynamics are discernible from that due to the solar variation, and to give input to the models so that they are able to explain the rapid composition variations.